Support of Botanical Systematics Collections at Harvard University

The large collections of plant specimens at Harvard, numbering nearly 5 million, form a major resource for research on Plant Systematics and related areas. Harvard's collections are broad in their coverage and are historically important, particularly in the study of the North American flora and the flora of Asia. Under the previous NSF grant from 1985 to the present, 837 loans were sent out to various U.S. and foreign institutions. These loans contained 76,225 specimens. An almost equal number were processed after return to Harvard. 152,584 specimens were added to the Harvard University Herbaria and 29,090 were sent as gifts or on exchange. 60,472 specimens were repacketed, remounted, or repaired during this period. Continued funding will allow for maintenance and access to the herbaria; access will be facilitated through the streamlining of filing and the production of finding guides, the exchange program will be continued, collections will be annotated and types located, marked, and indexed.